Timing of West Gondwana Assembly and Connections to Laurentia: Tests from the Amazon Craton

; R o o t E n t r y F ı C o m p O b j b W o r d D o c u m e n t O b j e c t P o o l ı ı 4 @ ( ! " # $ % & ' ) * + , - . / 0 1 2 3 4 5 6 7 8 9 : ; < = > ? @ A B C D E F G H I J F Microsoft Word 6.0 Document MSWordDoc Word.Document.6 ; e = e R R j j j j j j j H 1 * y T 5 H j H j j j j ~ j j j j 5 9526709 Grunow Several important tectonic questions about the late precambrian positions of South America and its relationship to Gondwana, Laurentia and Scotland, as well as paleolatitude and paleoclimate reconstructions for this time period are not satisfactorily answerable because of the lack of good paleomagnetic, geochronologic and stratigraphic references from a stable part of the craton. This project will investigate a portion of eastern Bolivia, where the rocks have escaped both Andean tectonics and rifting associated with the opening of the Atlantic ocean. The project is aimed at providing robust paleomagnetic poles for the time period 1.0 Ga- 540 Ma and ancillary age and stratigraphic control. Successful results will be applicable to many continued-wide problems of paleogeography and paleoclimate of the southern hemisphere. ; Oh +' 0 $ H l D h R:\WWUSER\TE MPLATE\NORMAL.DOT S u m m a r y I n f o r m a t i o n ( 9526709 Felicia Smith Felicia Smith @ @ @ @ Microsoft Word 6.0 1 ; R R ! ! K @ Normal a " A@ " Default Paragraph Font R R R R 5 Felicia Smith$\\CLM12\EARTESHR\1995SEPT\GRUNOW.TXT @HP LaserJet IIID LPT3: hppcl5a HP LaserJet IIID 8D R HP LaserJet IIID 8D R ~ 1 Times New Roman Symbol & Arial " h $ 5 9526709 Felicia Smith Felicia Smith ; ;